Hands-On Optics: Making an Impact with Light

"Hands-On Optics" is a comprehensive, national level program that introduces middle school youth to the science of optics using hands-on kits, modules and related activities. Six optics modules will be developed for use in after-school and weekend programs. Modules will focus on engaging topics such as kaleidoscopes, optical illusions, magnifiers and solar telescopes while exploring the principles of reflection, refraction, light and vision. "Hands-On Optics" will be introduced at four MESA sites in California and then disseminated to 13 other sites in California, Arizona, Oregon, Colorado, New Mexico, New York and Maryland. Additional dissemination venues include four science centers and two NSF-funded research centers. Students will also develop optic projects for competitions and participate in Industry Shadow Days, while parent workshops and a supporting website will provide guidance on careers. "Hands-On Optics" is projected to serve 39,500 students over a three-year period.